Acquisition of an Electron Paramagnetic Resonance Spectrometer

Electron Paramagnetic Resonance (EPR) spectroscopy is a technique used by chemists to study the properties of molecules having an electronic configuration containing unpaired electrons. In this manner, the structures of a wide variety of interesting intermediates can be understood. In the Department of Chemistry at Dartmouth College, research will be enhanced by the acquisition of a state-of-the-art EPR spectrometer and the types of systems that will be studied include: 1) EPR-detectable oxidation states of Ni enzymes 2) Paramagnetic organotitanium complexes involved in catalytic and synthetic chemistry 3) Paramagnetic species generated upon reduction of Cr (VI) by thiols and enzymes 4) Radical anions derived from negatively-substituted annulenes and related compounds